CRUI: Chararacterization of Catalytic Antibodies from Germinal-Center B Cells

This project is for Collaborative Research at Undergraduate Institutions, involving organic chemistry with biochemistry and cell biology. The immune system contains a class of B-cells which produce antibodies as part of the immune response. There are clusters of these cells in areas called germinal centers, which are sites of high mutation rates for these cells, and so add to the diversity of antibodies that can be produced. Some antibodies have catalytic activity, breaking down proteins by hydrolysis, for example. It is an attractive goal to try to induce formation of novel antibodies that will have highly efficient catalytic activity toward particular specific proteins, allowing production of powerful biochemical probes and tools. This project utilizes novel immune challenges by particular organic compounds and their transition-state analogs, and "capture" of the B-cell repertoire to assay for efficient catalytic antibodies. The antibodies obtained will be characterized for properties including binding site variation, affinity, catalytic activity, and molecular sequence of their variable regions. Results of this work will be important to biochemistry, to the chemistry of catalysis, and potentially to broad biomedical applications. This project provides a novel multidisciplinary experience involving undergraduates in exciting research with potentially exciting applications.